Development of Basins and Calderas in Extensional to Transtensional Arc Settings

This action is an accomplishment based renewal of EAR 90-18606 Jurassic Extensional Arc-Continental Rift transition, Mojave-Sonoran Deserts. The work involves study along the Sawmill Canyon fault zone in southern Arizona, that shows the interrelations of grabens, calderas and basement structures in a transtensional arc setting.